Development Of A Linked Hydro-Biogeochemical Model For An Arctic Watershed

ABSTRACT OPP-9622157 GIBLIN, ANNE MARINE BIOLOGICAL LABORATORY Investigators from the Marine Biological Laboratory and the University of Michigan propose to apply a new, computationally simple, modeling scheme to the problem of understanding the hydrological controls on terrestrial arctic ecosystems. The model will allow researchers to calculate the flux of nutrients, gases, and water through lakes, streams, and entire watersheds so that the ecological response of the terrestrial vegetation may be examined. The development of a model to determine the flux of materials and water flow is urgently needed because the cost of observing and calculating the flow throughout the Arctic is prohibitive. The new model will be used in conjunction with global climate models to test the effects of changing climate scenarios on the response of vegetation in the Arctic. The Arctic is expected to feel the impact of global change to a greater degree than other places on Earth and the new modeling scheme will allow predictions of the ecosystem response on the landscape scale without the necessity to run complex models requiring prohibitively long computational times.